Speciation and Isozyme Evolution of Freshwater Fishes in Northern Gulf Coast Drainages

This study compares patterns of molecular evolution in a number of phylogenetically unrelated groups of freshwater fishes that show common speciation patterns along the northern Gulf Coast of the United States. These speciation patterns are correlated with the most recent of four geological events that have affected this region since the Miocene (approximately 4 million years ago). These speciation patterns follow certain phylogenetic and biogeographic patterns predicted by theoretical models previously developed by the investigators. Certain unique speciation patterns, that imply different histories in the same region, will also be studied to provide contrasting data.